Distribution of VLSI Design Software for Education and Research

CAD design tools, produced in research projects at the University of Pittsburgh are being developed and enhanced so as to bring them into a state for distribution to general users. These tools are designed to help researchers and educators investigate synthesis of VLSI systems from VHDL descriptions. Specific tools being enhanced are: 1) "Vcomp" a compiler for a subset of the VHDL language, 2) "Vsim" the corresponding simulator, 3) A companion schematic editor written for X11, 4) A companion netlist-to- schematic tool written for X11, 5) "VF2VHDL" a reverse translator from netlists to VHDL. Tasks include: 1) Generate documentation for the compiler and simulator with tutorials, examples, and classroom aides; 2) Enhance the simulator to provide a graphical waveform display package based on IRSIM/Analyzer from Stanford; 3) Convert the old schematic tool from sunview to X11; 4) Clean up for distribution the netlist to schematic tool for X11; 5) Update the netlist to VHDL tool. Technical support via email will be provided. This grant is made under the Software Capitalization Program.